Topics in Measurable Group Theory

Abstract

Award: DMS-0905977
Principal Investigator: Alexander Furman

The proposed project contains three research directions involving
infinite groups and dynamics of group actions. These three
directions include: (1) A uniform approach to a number of higher
rank superrigidity phenomena. This approach, based on the notion
of a generalized Weyl groups, should cover many known results,
including the original Margulis' superrigidity, and its cocycle
version due to Zimmer, results for abstract products, new results
for groups acting on exotic affine buildings. (2)
Measure-theoretic notion of imbedding between countable groups.
The project is to study the resulting equivalence classes of
Measurably Bi-Imbeddable groups, and the order between these
classes. The techniques include cocycle superrigidity results
obtained in part (1). (3) "Moduli space" of invariant metrics on
a Gromov-hyperbolic group taken up to bounded distortion. The
guiding and motivating source for such metrics are metrics lifted
from Riemannian metrics of negative curvature on a fixed closed
manifold.

The project belongs to an area of research where Algebra,
Geometry and Dynamics interact. The common theme of the project
is the study of intrinsic symmetries of certain structures which
appear in Dynamics, Algebra and Geometry, and the impact that
such intrinsic symmetries have on the studied objects. The
proposed problems suggest new points of view and possible
generalizations to some important recent results in these areas.